MRI: Track 1 Acquisition of a high performance central computing facility at UCSB

This project, acquiring a high-performance-computing cluster for the University of California at Santa Barbara, provides critical computational resources for both the research and education missions of the campus. The research enabled by this hardware spans over twenty individual departments and seven campus research institutes, with topics covering diverse fields from astrophysics, to ecology, to molecular biology to materials science and more. Approximately 80% of the hundreds of users of the machines are students at the undergraduate, graduate or postdoctoral level; the cluster provides a critical tool for their training. Additionally, the machines contribute to the educational mission of the university through their use in computational laboratory courses at both the undergraduate and graduate levels.

The University of California at Santa Barbara (UCSB) will purchase a high-performance-computing cluster for use in scientific research and education on campus. This facility will be available to the entire scientific/engineering community at UCSB and will contribute to research projects across an incredibly diverse range of disciplines. For example, molecularly-informed field-theoretic simulations will investigate the structure and thermodynamic phase behavior of block copolymers, emulsions and polyelectrolyte complexes. Genomic sequencing and imaging data will be analyzed to further our understanding of deep-sea organisms, anaerobic gut microbes and filamentous fungi. Electronic structure calculations will elucidate the physics of quantum defects, with applications to quantum computing, quantum sensing and secure quantum communication. Atmospheric models will be used to generate climate forecasts and crop projections to monitor food insecurity in developing countries. Supermassive black hole accretion disks will be modeled with radiation magnetohydrodynamical simulations. AI models will be refined to improve trustworthiness and energy efficiency through uncertainty quantification and low-rank tensor optimization methods. And, cryogenic electron microscopy data will be analyzed to determine biological structures, including macromolecular complexes and larger-scale pleomorphic structures including bacteria and cells. These examples of research are only representative and only anticipate some initial uses of the cluster; the facility will serve nearly all the science and engineering departments/institutes on campus and hundreds of individual users.